Prandtl Number Reduction by Volumetric Heating Applied to Flow Visualization in Czochralski Melts

A novel method for simulating experimentally the low Prandtl number natural convection typical of semiconductor melts will be explored. Conventional fluids with Prandtl number near unity will be subjected to thermal radiation to thicken the thermal boundary layer. Visualization through streak photography will be used to reveal flow patterns simulating semiconductor melt convection, since such visualization is difficult to impossible in actual melts. This will contribute to understanding and control of semiconductor crystal growth for more homogeneous semiconductor crystals.